Research in Nuclear Astrophysics

A series of projects in nuclear astrophysics will be undertaken. These include studies of nuclear reactions with electron screening taking into account, an analysis of the light curves and long term evolution of novae, nucleosynthesis in nova explosions, nucleosynthesis in the explosion of massive stars, abundance history of light elements in the galaxy, the formation of globular clusters and the collapse history of the Milky Way galaxy.